Endogenous Fertility and the Environment:Dynamics and Welfare Implications

It is widely recognized that population pressure is one of the most important sources of environmental degradation, especially in developing countries. What is less fully appreciated is the impact of environmental quality on people's motives for having children. This project focuses on the implications of parents' desire for children and concern with the children's future well- being for the dynamic relation between population and environment. The project also investigates whether a system of taxes on children and subsidies to parents can be welfare- improving for members of the present generation and what affects such tax/subsidy policies may have on the dynamics of demographic/environmental interactions. The relation between population and the environment in developing countries is also an important part of the human dimensions of global change because environmental degradation in developing countries causes global warming and because continued high rates of population growth in developing countries will make it increasingly difficult if not impossible to reconcile goals for economic growth with the protection of the environment. The research is both theoretical and empirical. Specifically, an agricultural input demand systems model is derived, specified and estimated. This model includes age- and gender- specific labor demand equations. The empirical research relies on Burkina Faso Survey Data and Pakistan Survey Data. The former data set contains very detailed information on agricultural production in Burkina Faso over the period 1981 through 1985, including the use of household and hired labor, by age and sex, for a wide variety of agricultural activities. The latter data are representative of poor households in three distinct agroecological zones in Pakistan and provide very detailed information on the socioeconomic and agricultural characteristics of these families.